Acquisition of Ti/Sapphire Amplifier for Upgrading Powerful Subpicosecond Laser Facility

This proposal requests funds to upgrade the existing Princeton Subpicosecond Laser Facility by replacing the current KrF amplifiers with a 600 mJ, 10 Hz repetition rate, multipass Ti/Sapphire amplifier. The funds requested are for direct purchase of the system from a commercial company. The first objective of the upgraded system is to further exploit ideas for the development of a compact soft x-ray laser in the "water window" region of the spectrum that is potentially so valuable for biological applications. At the same time, the facility would serve as a resource for faculty members and graduate students from different departments in multi-disciplinary projects, including Raman amplification of subpicosecond pulses, study of surface modification of solid materials, and the study of property changes in thin layers of semiconductor materials.